Presidential Young Investigator Award

Over the next five years, two experimental programs with related research goals will be pursued. The first will better characterize the natural radio environment of the earth at LF-HF frequencies. Significant natural emissions have been detected above the ionosphere in this band, but the study of natural emissions from the ground have been relatively few. The second research goal is to undertake experimental studies of non-linear plasma physics processes in space. Examples include wave-wave and wave-particle interactions, plasma turbulence and non-linear structures such as solitons. Both kinds of experiments will develop new software technologies along with wave receives instrumentation.